CAREER: Smart Protein-Polymer Conjugates for Biotechnology

9733009 Chilkoti The major goal of the proposed research is to reversibly modulate protein-ligand affinity by a thermally-triggered molecular switch attached to the protein scaffold in the vicinity of the active site. The design includes a novel two-step strategy, combining genetic circular permutation with enzyme-assisted reversed proteolysis, to produce the final protein-polymer conjugate. The PI envisions future development of a regenerable, semi-continuous biosensor based on permustat-poly (NIPAAm) constructs that display "off-rate" controlled affinity modulation. The research activity is complemented by an educational program which addresses two primary aims: the establishment of an outreach program for high school students within the Duke School of Engineering, and the expansion of the Biomedical Engineering curriculum to include new elective courses in the fields of genetic engineering, molecular biology and protein engineering. ***